RUI: Surface Segregation in Alloys

This proposal studies surface alloy segregation in single crystal and polycrystalline noble metal systems using angle-resolved Auger electron spectroscopy and variable electron exit angles. Single crystals are oriented with low index surfaces exposed, and are characterized by low energy electron diffraction. Process variables include temperature, alloy composition, and crystal orientation. Of interest are the lattice strains arising from atomic size mismatch. Calculations using the Embedded Atom Method are used to model the composition depth profiles. The subject of surface segregation in metallic alloys is important to properties and behavior. Alloy systems selected should provide valuable addition to data base on surface segregation.